QSB: Dynamic Contraints Based Modeling of the Escherichia coli Metabolic Network

The overall goal is to develop quantitative descriptions of bacterial metabolism to help elucidate the genotype-phenotype relation. The focus is on augmenting network analysis and phenotype prediction by accounting for genetic-level capabilities and control mechanisms. The tasks are to perform a sensitivity analysis of a simplified E. coli network model contained using Lagrange multipliers from nonlinear programming and to collect data on constraints for a large scale dynamic FBA simulation from the literature and existing online databases. The union of biochemical engineering and system analysis investigators will provide significant cross-training to the student involved.